Chesapeake Modeling Symposium '08

CBET-0824768
A. Voinov, Chesapeak Research Concortium Inc.

This award is in partial support of the 'Chesapeake Modeling Symposium '08. The symposium is focused on a community modeling program to further the development of open source watershed and estuarine modeling. The symposium will be held in Annapolis May 12-14, 2008. The funds will be used in partial support of student participation and two invited speakers.